Postdoc: Automatic Programming of Decentralized Parallel Architectures

Mitchell 9503162 This postdoctoral research will be on developing novel techniques for the automatic programming of decentralized parallel architectures such as cellular automata. Preliminary research performed has shown that genetic algorithms (GAs) are promising techniques for designing one-dimensional cellular automata to perform computations. The major effort will be in extending the work from one- to two-dimensional systems, which will allow the design techniques to apply to real-world parallel computation problems such as image processing, pattern recognition, and image compression. This extension will require a number of advances in the theory of spatial parallel computation as well as in the theory and application of genetic algorithms.